SSC: Summer Science Camp

SSC-9350580 The Science Place Dallas, TX Sudduth, William, Mooz, Elizabeth and Hafey, Charles "Summer Science Camp" Since science and math skills need to be strengthened among minority teens, The Science Place (TSP) Summer Science Camp (SSC) is designed to provide a six-week program to this target group emphasizing scientific and computer instruction, exposure to scientific research, career exploration, communication skills, family involvement, and student contact with scientists and engineers. The program is a collaborative effort involving TSP staff, Dallas ISD students, the YMCA of Metropolitan Dallas, and the D.C. James Learning Center. Students will be selected on the basis of questionnaires, interviews, and recommendations. Six scientific modules will be introduced depicting: physics, the environment, electricity, astronomy, health and biology, and math. Other areas to be included are: visiting scientists, career opportunities,and physical education. During the SSC, student teams will select one area of special interest, write a report and give an oral talk at a family camp-in at TSP. Students will be encouraged to continue contact with TSP throughout the year with a complementary TSP membership. Students will be tracked for their progress by DISD teachers, encouraged to educate their peers and maintain their interest in science by volunteering at TSP.